Group Travel for US Participation in the 22nd International Cosmic Ray Conference, August 11-23, 1991, Dublin, Ireland

This is for the 22nd Cosmic Ray Conference to be held in Dublin, Ireland in August of 1991. The conference is concerned with various aspects of the physics of cosmic rays including their impact on the environment. *** //